BCO-DMO: Streamlining the Ocean Data Life Cycle to Advance Interdisciplinary Research and Education

The creation, synthesis, analysis and interpretation of data are essential activities of the scientific research process. Beyond their intended analyses, resultant data hold great potential to accelerate scientific discovery through their reuse. Oceanographic research produces data of many types, scales and formats, and that are often collected at great cost and effort, making them particularly valuable but challenging to manage. The Biological and Chemical Oceanography and Data Management Office (BCO-DMO) was created to address oceanographic data challenges by assembling, curating, and publishing data and related products resulting from ocean and Great Lakes research. BCO-DMO assembles, curates, and publishes research-ready data and metadata resulting from oceanographic research. The repository employs leading standards, practices and technologies to increase the findability, accessibility, interoperability and reusability (FAIR-ness) of its data and to share its content with other data repositories. Educational activities, such as software carpentry and hack-a-thon events, engage undergraduate students and early career researchers, training them in good data practices and the use of computational notebooks for open science while providing real-world data exposure. These experiences also provide an opportunity to improve the quality of metadata within the BCO-DMO database while fostering a more data savvy oceanographic research workforce.

BCO-DMO is providing data management services to the oceanographic research community while making focused technological improvements throughout the data life cycle that are greatly advancing operational efficiency, improving end-user experience, and facilitating synthesis science. Objectives include: 1) continuing the core mission data management services for projects supported by the NSF Biological and Chemical Oceanography Programs and Office of Polar Programs, 2) optimizing the efficiency of data management operations, 3) developing outreach and education efforts that promote data reuse and interest in oceanographic science, and 4) improving discoverability and interoperability of the BCO-DMO catalog for reuse. The BCO-DMO team will also engage in cyberinfrastructure research to evaluate the application of technologies, standards and leading practices to improve the management and provision of oceanographic data and information. The project will explore multi-faceted applications of AI aimed at streamlining data sharing, discovery and access, enabling researchers to document their own data for sharing, locate data of interest, and incorporate desired data into automated research workflows more effectively.